NSF INCLUDES DDLP: Aligning for Impact: Computer Science Pathways Across Contexts

Aligning for Impact: Computer Science Pathways Across Contexts [CS-PAC] is an NSF INCLUDES Design and Development Launch Pilot. It broadens participation of students who are underrepresented in computer science by using the convening and policy-making power of the Georgia State Department of Education to coalesce school district leaders to implement K-12 computer science education. The project provides a national model for how to work toward systemic change. With the State Department of Education's coordination, several school districts will collaboratively seek improvements in their own student participation rates. The coordination of data reporting and analysis, resources, communications, and policy promote more equitable participation in computer science education. Research emerging from this project informs other states about how to collaboratively shape computer science education policy and policy implementation.

Using a Collective Impact approach to systemic change, the project creates sustainable institutional change at the community, state, and national levels. Qualitative and quantitative data provide descriptions about how to utilize alignment strategies within Collective Impact in three different contexts: rural, suburban, and urban. Outcomes utilize a regression discontinuity analysis to justify successful implementation as well as qualitative analysis of implementation efforts that were deemed most effective by all stakeholders. The project outputs directly affect over 88,000 students across five districts and indirectly affect over 1.7 million in Georgia alone. The culminating project goal is the development of a coherent framework for aligning K-12 computer science education pathways.